THE EDDIE FILES: Instructional Television Programs and Teacher Support Materials to Interest Students in Math and Careers (Grades 4-6)

9450267 Heard The producers of FUTURES, Interactions, and Good Morning Miss Toliver have developed a new PBS in-classroom series for students aged 8-12. This series, titled The Eddie Files consist of four 15 minute segments crafted for teacher use. Each segment is dense with wonderful career applications of math, science and technology, effective classroom techniques modeled by Ms. Kay Toliver and narration/navigation provided by a fictitious youngster named "Eddie". Eddie a fictitious student in Ms. Tolliver's class, takes students to the real world where they meet people in real jobs. Students learn about real-life applications of mathematics through the eyes of Eddie. The series is released through a multiple distribution strategy including PBS Learning Services, videocassette tapes and will be available for broadcast into the home. Ancillary materials consisting of a teacher support print component, lesson plans, potential staff development activities and student explorations has been produced and is being distributed. Extensive and sustained outreach and promotional activities accompany the release of the program to ensure broad utilization of the series. ***